Continuation of Research in MOS Data Acquisition Circuits

This project is investigating MOS data acquisition circuits. The research is directed toward establishing the fundamental factors which limit the performance of MOS analog-digital interface circuits, and toward synthesizing architectures which closely approach those fundamental limits. Specific topics for investigation include self- calibrated pipelined A/D circuits, video CODEC's, investigation of fundamental performance limits in sample and hold circuits, concurrent analog processing in A/D converters, and mixed-level simulation for A/D interface applications.